Travel: Student Travel Grant for 2025 Cyber-Physical Systems and Internet-of-Things Week (CPS-IoT Week)

This project provides funding for students from U.S. institutions of higher learning to attend the 2025 Cyber-Physical Systems and Internet-of-Things Week (CPS-IoT Week 2025). Cyber-Physical Systems (CPS) are a characterized by a tight integration of computational components and their physical environment that they and interact with. Autonomous vehicles, electrical grid, and oil refineries are all examples of large-scale cyber-physical systems. Designing such systems and ensuring their safety and security requires a highly specialized workforce that is critical to long-term competitiveness of the U.S. economy. CPS-IoT Week is a premier research venue for cutting-edge CPS design. Increased participation of US-based undergraduate and graduate students at CPS-IoT Week 2025 significantly contributes to the development of forward-looking CPS workforce.

CPS-IoT Week is being organized in Irvine, CA, in May 2025. It is comprised of several top-rated conferences on various aspects of CPS design. The project provides travel support for U.S.-based students who will otherwise not be able to attend.